1996 Gordon Research Conference on Laser Interactions with Materials; Plymouth, NH

9631033 Dickinson The proposed conference will provide a dynamic forum for the presentation and discussion of new work on laser interactions with materials and applications to a number of new technologies. This is an interdisciplinary conference with strong connections to the communities of physics, chemistry, materials science, and materials engineering. The conference format involves primarily invited speakers with approximately one-half of each session devoted to an in-depth discussion. In addition, a poster session will be held that will enable other attendees to present their work. %%% The proposed conference will provide a dynamic forum for the presentation and discussion of new work on laser interactions with materials and applications to a number of new technologies. This is an interdisciplinary conference with strong connections to the communities of physics, chemistry, materials science, and materials engineering. The conference format involves primarily invited speakers with approximately one-half of each session devoted to an in-depth discussion. In addition, a poster session will be held that will enable other attendees to present their work. ***